Navigating the Path of Totality: Total Solar Eclipse Live from Micronesia

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program funds innovative resources for use in a variety of settings. This education project is a time sensitive opportunity related to the March 9, 2016 Total Solar Eclipse occurring in a remote part of the world located in Waleia in the Federated States of Micronesia, a U.S. affiliated Pacific Island nation. The path of totality is only 100 miles wide and passes through only a few Pacific Island nations ending in Hawaii. This project uses this unique phenomenon to educate a large US and international audience about solar science using multi-platforms with integrated video, social media, and public programs. Project deliverables include the production of a broadcast of the eclipse live from Waleia in the Federated States of Micronesia on March 9, 2016 making it accessible to hundreds of countries and millions of people around the world via satellite and live streaming on the Internet. Additional deliverables include on-site educational programs at science centers and planetariums as well as media resources for long-term use. These resources will enhance the interest and preparedness for additional public engagement when the 2017 eclipse occurs in the U.S.

Making new research understandable and accessible to the public is an important activity of the U.S. research enterprise. NSF is making a substantial investment in solar physics research by funding the construction of the world's largest solar telescope, the Daniel K. Inouye Solar Telescope which is slated to begin operations in late 2019 and operated by the National Solar Observatory. This new facility will revolutionize researchers' capability to study the Sun and its magnetic fields. This education project leverages that investment with a major public engagement opportunity that has the potential for reaching millions of students, teachers, and the public both in the U.S. and worldwide through the Internet.